Interagency Agreement No. NPS-IA-1100-9-0001/DPP89-12135 Modification No. 3

Since 1986, public interest in Antarctica has increased dramatically. In response commercial tour operators have expanded their antarctic operations, particularly in the Antarctic Peninsula region. Because many of the tourists are U.S. citizens, the demand for visits to U.S. Antarctic Stations also has increased. The National Science Foundation, as manager of the U.S. national program in Antarctica, is attempting to meet the demands of taxpaying tourists without significant impact to the research program. Because the National Park Service has extensive experience in planning and managing tourists at parks and other sites throughout the United States, NSF has sought their assistance to develop programs that will provide tourists with informal access to U.S. stations without increasing pressures on limited U.S. resources in Antarctica. Under the terms of this interagency agreement, the National Park Service will help NSF formulate, plan, and present interpretive programs and other visitor activities and will provide NSF with the following: o a video tape (approximately 15 minutes long) to be shown to tourists visiting Palmer Station. o interpreter services at Palmer Station between January and March 1990. o planning and other services as determined by both agencies.